Elementary, Secondary, and Informal Education: Nature in the City -- A Planning Grant

The Bell Museum of Natural History is seeking a planning grant to begin the exhibit development process for a national traveling exhibit on nature in urban settings. "Nature in the City" will be designed to encourage the exploration of diversity of life in the city in the same way ecologist study ecosystems. The overall goal of the exhibit is to improve the public's understanding of ecology and biodiversity, and the relevance of these concepts to their lives in creating healthier and ecologically sustainable communities. The project will include front-end evaluation, identification of key themes and take-home messages, and a survey of potential host sites. The target audience assessment will examine interest, knowledge and attitudes about nature and the environment among urban audiences. Methodology will include interviews with community members, focus groups and surveys, all conducted in collaboration with museum staff and community groups. The results will be applied to the design of the 3000 sq. ft. "Nature in the City" traveling exhibit, mini-kiosks and supporting programs.